Interactions Between Seasonal Cycles and Business Cycles

This research builds off a previous NSF grant which demonstrated that the seasonal variation in macroeconomic activity in the U.S. and other economies displays striking similarities to business cycle variations. It also shows that those countries or industries that display the greatest amount of seasonal variation are also the ones that display the greatest amount of business cycle variation. A plausible explanation for these results is that the same propagation mechanism is operative in producing seasonal and business cycle variation, even if the ultimate sources of the two kinds of fluctuations are quite different. The results from prior work thus suggests that it is important to undertake an integrated analysis, including analysis of the welfare implications of seasonal variation. The purpose of this project is to begin developing such an analysis. The first part of the project will develop a model of production and inventory decision-making at the level of the firm that can account for the cross-sectional correlations between the amounts of seasonal and cyclical variation found in the data. In the second part, the welfare implications of the Federal Reserve's policy of ameliorating the seasonal fluctuations in interest rates will be examined. The third part of the study compares the welfare consequence of seasonal cycles and business cycles, and the fourth part involves the construction of a new monthly, seasonally-unadjusted index of industrial production for the period 1884 to 1940.